NUE: A Nanotechnology Certificate Program for Engineering Undergraduates

"This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5)."

This Nanotechnology Undergraduate Education (NUE) in Engineering program entitled "NUE: A Nanotechnology Certificate Program for Engineering Undergraduates", at the University of Wisconsin-Madison (UWM), under the direction of Dr. Wendy C. Crone, will create, implement, and evaluate an interdisciplinary Nanotechnology Certificate Program in the College of Engineering by an interdisciplinary team of engineering faculty, staff, and graduate students. New course modules will be created to modify existing courses on nanoscale science, engineering, and technology (NSET), institutionalize newly proposed courses specific to the Nanotechnology Certificate, and train graduate student interns and faculty in developing and assessing new simulation-based interactive learning materials in collaboration with faculty from the School of Education. The Nanotechnology Certificate will provide a mechanism for training undergraduate engineering and physical science students at UWM in NSET.